Incorporation of a 300MHZ NMR Spectrometer in the Undergraduate Curriculum

A 300 MHz nuclear magnetic resonance (NMR) spectrometer will be used in three sophomore-level organic chemistry lab courses, two junior-level physical chemistry lab courses, and senior- level laboratory courses in inorganic chemistry and chemical spectroscopy. The instrument will strengthen the organic courses, which are taught in a non-traditional way that emphasizes interpretative skills. The principles of relaxation and coherence will be illustrated in the experiments in physical chemistry. Two-dimensional NMR will be introduced in the senior level molecular spectroscopy course. This instrument will also be used to acquire data for students at other colleges in the region. Methods of performing rapid ID NMR calculations on personal computers will be tested. This project was funded jointly by the USEME Division and the Chemistry Division.